Ocean Instrumentation 2000

9912433
McDuff
This award to University of Washington will provide instrumentation for oceanographic research for use on R/Vs Thompson and Barnes, research vessels operated by the university's School of Oceanography as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a pair of replacement fume hoods to be used in the isotope vans, and three transmissometers for study of light scattering in the water column. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the northeast Pacific, but also elsewhere in the world oceans, during 2000 and future years.
***